Integration of Microcomputer Spreadsheets into General Education Physics and Astronomy Courses

This award is made as part of the Instrumentation and Laboratory Improvement program. This program funds innovative new projects for undergraduate physics laboratories. The Principal Investigator of this project is Dr. Franceschetti of Memphis State University.